Mathematical Sciences: Special Semester in Real Algebraic Geometry and Ordered Structures; January 11 to May 16, 1996; Baton Rouge, Louisiana

Delzell DMS 95-28094 This awards supports the special year in real algebraic geometry to be hosted jointly by Louisiana State University and Southern University. Emphasis will be placed on the study of the algebra and logic of ordered structures. This research is in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which blossomed to the point where it has, in the past 10 years, solved problems that have stood for centuries. Originally, it treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebra, but also from analysis and topology, and conversely it is extensively used in those fields. Moreover it has proved itself useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.